CAREER: New Families of Photo-and Redox-Active Molecular Rods and Squares with Rigid sp Carbon Chain Spacers

This CAREER award to Dr. Bo Hong at the University of California-Irvine is supported by the Advanced Materials Program in the Chemistry Division. The focus of the research is the synthesis and photo- and redox-active behavior of novel types of molecular rods and macrocyclic molecular squares with rigid sp carbon chain spacers. Systematic synthetic approaches will be applied to a series of rigid rod spacers with cumulenic and acetylenic carbon chains which will be used in the construction of molecular rods and squares which contain photostable organometallic moieties with donor and acceptor properties. These rigid rods and squares will have defined structures with controllable distances between donor and acceptor sites and controllable cavity sizes. These features are important to molecular electronic and photonic devices, light to energy conversion, molecular recognition and host-guest chemistry. The redox properties and photophysics of the novel constructs will be investigated, particularly electronic communication between multiple redox centers and directional photoinduced electron/energy transfer across sp-carbon spacers. The teaching aspect of the CAREER award will emphasize the training and retention of women students at both the graduate and undergraduate levels and the integration of teaching and research at the undergraduate level. A `Women in Science` discussion group, organized by Dr. Hong, will be expanded to include outside speakers addressing issues such as dual careers, interviewing, coping strategies, childcare, outreach programs and history of women in science. The goal of this activity is to provide practical solutions to real world problems and concerns of women students.